Science Coordination Office for Summit, Greenland Environmental Observatory (Cooperative Research with the University of New Hampshire)

ABSTRACT

Summit Greenland is a site of expanding scientific interest by both U.S. and European scientists. Current U.S. projects are evaluating ice-core characteristics related to environmental change, are investigating upper and middle atmosphere phenomena as a basis for understanding the global system, are evaluating atmospheric conditions in the troposphere and in the boundary layer contacting the Greenland permanent ice sheet, and are establishing the radiation, energy, and water balances which occur on the ice-pack. To better coordinate the disparate communities using this environmental observatory, a Science Coordination Office will be established. Its goals are to: 1) coordinate measurements between investigators and the sharing of facilities and personnel on-site, 2) provide scientific requirements to NSF, it's support contractor and European partners as the facility is developed, 3) stimulate sharing of data among science projects.